Active Galactic Nuclei in the Infrared Astronomy Satellite Source Catalogs

This research will use the Green Bank 4.85 GHZ northern sky survey to find radio identification candidates for extragalactic sources in the Infrared Astronomy Satellite (IRAS) Faint Source Catalog. The candidate identifications will be checked using VLA maps and optical positions. It is expected that this work will yield approximately 200 confirmed radio identifications having active galactic nuclei as their source, and another 200 sources powered by stars in normal spirals and starburst galaxies. The Principal Investigator is a widely recognized expert in identification of radio sources.